MRI: Track 1: A new State of the Art Electron Probe Microanalyzer

The new electron microprobe (EPMA) will have state-of-the-art capabilities. It will analyze a range of geological, engineering, and other materials. It will also enable scientific discoveries across disciplines. These include the distribution of strategic and critical minerals within the Earth, and techniques to search for novel engineering materials. The instrument will be available to the national and international scientific community, and will include high-school students through the highest academic ranks.

This new electron microprobe (EPMA) can analyze sub-micron volumes of material, resulting in better spatial resolution, higher count rates, better modeling of background counts, and faster analyses than are currently possible, allowing for the characterization of shorter length-scale features. The new technology will improve trace element analyses, reducing count times and lowering uncertainties. It will improve the characterization of thin film materials. This instrument will advance our understanding of volcanic eruption explosivity, planetary formation, subduction zone fluid flow, thermal structure of subduction zones, mantle processes, fish ecology, body structure of early Earth organisms, and the discovery and optimization of new materials using combinatorial strategies. The analytical theory and hands-on experience will be integrated into the graduate and undergraduate curriculum, providing students with transferable skills for the STEM workforce.